BPC-DP: Information Management and Systems Engineering

Wayne State University proposes a partnership with Focus: HOPE in Detroit, Michigan to implement an Information Management and Systems Engineering (IMSE) program, which is designed to guide and support disadvantaged students at critical junctures from a GED through the completion of a postsecondary degree. The IMSE program begins with multiple proven bridge and support activities provided by Focus: HOPE including a remedial math and reading program; an industry-certified training programs in network administration, network installation, and desktop and server administration; professionaldevelopment workshops; a student loan program; a community food bank; and an on-site child-care program. The second part of the IMSE program combines a Bachelor of Arts in Information Systems and Technology offered by Wayne State University WSU) with a coordinated support program. The coordinated support plan at WSU includes tutoring and mentoring programs, culturally sensitive advising, emerging scholars sections of introductory programming courses, social networking, and participation in industry internships and academic research.